Applications of Riemann-Hilbert Theory to Gravitational WaveInteractions (Physics)

If a linear theory of gravitation were correct, then colliding plane gravitational waves in a vacuum would pass through one another without any alterations in their shapes or intensities. However, according to the nonlinear theory of gravitation due to Einstein, two colliding plane gravitational waves in a vacuum interact and thereby produce a scattered wave which is not a plane wave and which differs markedly from the original plane waves. The principal objective of this research is to find systematic methods of determining the scattered wave when the two colliding plane waves are given, i.e., methods of solving the initial value problem for colliding plane gravitational waves. A related objective is to seek the answers to certain important questions concerning such collisions. One of these questions is whether the study of colliding plane gravitational waves can tell us anything significant about real colliding gravitational waves (which are not planar). The research, which begins with a reformulation of the initial value problem into a certain new kind of Riemann-Hilbert problem, involves the analysis of this Riemann-Hilbert problem, the study of the existence and properties of its solutions, and the discovery of practical methods of solving the problem